Doctoral Dissertation Research in Geography and Regional Science

In response to concerns about health-related problems associated with the drift of agricultural pesticides to people located near application sites, safer, more concentrated means of application have been developed. Major questions remain unanswered regarding the degree to which people are still exposed to chronic, low-level amounts of pesticides. This project will evaluate of data on pesticide applications, weather patterns, and population patterns from sites in California, Ohio, and New Jersey to test three hypotheses related to the impacts of agricultural pesticides on suburban residential populations: (1) Traditional analyses of pesticide drift as a hazard only when acute, high-level exposures occur underestimates levels of potential chronic, low-level exposures, (2) suburban development into agricultural areas magnifies possibilities for chronic, low-level exposures, and (3) demographics patterns further increase risks because suburban populations usually have higher proportions of children and young adults, which are the groups most vulnerable to chronic pesticide exposures. This project will significantly enhance our knowledge of the dynamics by which pesticide drift affects nearby populations by relating data from different sources in three representative but distinctive sites. The research also will provide valuable new insights that can be used to evaluate current and prospective policies regarding pesticide application and urban development, and it will provide an excellent opportunity for a promising young scholar to continue to develop independent research skills.